MTD: Midwest Theory Day

The goal of this project is to establish a series of one-day workshops for researchers in theoretically oriented fields of computer science in the Midwest United States. The plan is to hold the meeting twice a year in the Midwest to discuss latest results in theoretical aspects of computer science and methodologies to transfer them to applied fields.